The Study of Nuclear Physics with Intermediate Energy Probes

The goal of the research program at the University of South Carolina
is to investigate the structure of protons and neutrons
(collectively known as nucleons), and other subatomic particles. The
properties of subatomic particles - such as their mass or the manner
in which they are produced - hold key information on the fundamental
forces of nature. Using powerful microscopes comprised of beams of
photons or electrons, our experiments are able to probe the behavior
of forces inside the atomic nucleus. These endeavors are
accomplished using particle detectors located in Hall-B at the
Thomas Jefferson National Accelerator Facility (JLab) in Newport
News, Virginia.

The University of South Carolina JLab group consists of three
professors, two postdoctoral scientists, five graduate students, and
four undergraduate students. We are devoted to education and
therefore invest a significant portion of our research time
involving students and young research scientists in our experiments
to provide a component of their education that is not available in
the classroom.